I-Corps: Scalable, Highly Efficient Power-generating Windows: the Future of Urban Buildings

The broader impact/commercial potential of this I-Corps project introduces a disruptive solar power-generating window design capable of generating clean, on-site, and abundant electricity directly to commercial buildings and homes. While utility solar energy offers off-site generation to urban centers, up to 10% is lost simply due to heat dissipation. And with evolving legislature imposing stricter requirements on building energy codes, power-generating windows offer to be one of the most promising avenues for attaining net-zero energy levels. We plan to scale-up our laboratory-level power-window technology through close industrial partnerships with individual component manufacturers and customer segments discovered through the I-Corps award. Through initial relationships with window manufacturers, our beachhead market will service large-scale commercial projects in Southern California, shifting the energy landscape toward a future of abundant, clean energy.

This I-Corps project uses improved luminescent solar concentrator (LSC) technology to create a highly efficient power-generating window, indistinguishable from large-area windows. LSCs absorb incident light via nanoscale particles, called luminophores. Luminophores (e.g. quantum dots) are a class of particles that, when exposed to a broad range of light, absorb the high energy portion of the spectrum and re-emit the light again at lower energies - this re-emitted light is known as photoluminescence (PL). The target quantum dot in our innovation consists of InAs/InP/ZnSe - a material that absorbs light across the visible spectrum (400-700nm) and re-emits as PL at wavelengths in the near-infrared (NIR) regime (900-1000nm). As such, the re-emitted light is visibly transparent and well designed for a power-generating window. Luminescent Energy power windows employ an innovation that consists of four fundamental components: (1) a grid of micro-scale silicon solar cells, (2) a polymer waveguide with (3) embedded InAs/InP/ZnSe quantum dot luminophores, and (4) selectively reflecting filters to trap the majority of the photoluminescence generated by the quantum dot luminophores and enable competitive window U-values. Our design has been optimized using experimentally-verified modeling tools, and we have begun fabrication of each of the four device components independently.